East Tennessee Math Modeling Consortia

9353951 Preston The East Tennessee College Mathematics Consortium is conducting two five-day workshops to introduce mathematical modeling to freshman and sophomore two and four-year college mathematics faculty. The first workshop is calculus-based and the second workshop is precalculus-based. Participants are expected to develop and incorporate appropriate models into the calculus and pre-calculus courses they teach during the year following the workshop. Three follow-up sessions are being held after each workshop to reinforce the modeling techniques studied and strengthen participant communication. A project document containing the models studied and developed is being produced and distributed to all participants. Fifteen of the participants in the first workshop serve as leaders for the second workshop. ***